Mathematical Sciences: Nonlinear Integrable Equations: Complex Geometric Phases and Geometric Asymptotics

9403861 Alber The investigator plans to continue research in geometric phases and asymptotics for non-linear equations with singularities. Hamiltonian systems, holonomic constraints and optical soliton solutions will also be considered. The scope of the research has a number of potential applications to such areas as fiber optics, micromotors and robotic engineering. ***